A Proposal to Integrate Sensing with Actuation to Form a Robust, Intelligent, Robot Control System

The research will investigate the integration of a number of sensors and actuation mechanisms to form a robust robot controller. Principal research issues are: (1) the subdivision of the task to allow for concurrent planning and execution by the sensor and action systems, or "agents", (2) the integration of a number of disparate partial sensor observations from these agents into a "best" statistical estimate of task state; and (3) the development of a real time programming system to support such a distributed agent system. The project will also investigate language primitives for expressing timing constraints within agents, distributed scheduling of agent execution, and inter-agent communication requirements.